ARIEL - Augmented Reality for Interpretive and Experiential Learning

Institution: Franklin Institute Science Museum
PI: Snyder, Steve
Project: ARIEL - Augmented Reality for Interpretive and Experiential Learning
Proposal No.: DRL-0741659

PROJECT SUMMARY

In partnership with the University of Pennsylvania's Graduate School of Education and Carnegie Mellon University's Entertainment Technology Center, the Franklin Institute Science Museum will develop, test, and pilot an exportable and replicable cyberlearning exhibit using two cutting edge technologies: Augmented Reality (AR) and Virtual Reality (VR). The exhibit's conceptualization is anchored in the learning research vision of the NSF-funded workshop Cyberinfrastructure for Education and Learning for the Future (Computing Research Association, 2005). The incorporation of VR and AR technologies into the Franklin Institute's electricity and Earth science exhibits is an innovation of traditional approaches to hands-on learning and will improve the quality of the learning experience for the primary audience of families with children and elementary school groups. The project has implications for future exhibit development and more broadly, will provide new research on learning on how to incorporate cyberlearning efforts into traditional exhibits. Fifteen participating exhibit developers across the ISE field will assist in the evaluation of the new exhibit; receive training on the design and development of VR and AR exhibits for their institutions; and receive full access to the exhibit's new software for implementation at their informal learning sites. The technology applications will be developed by Carnegie Mellon University's Entertainment Technology Center--leaders in the field in Virtual Reality design and development. Front-end and formative evaluation will be overseen internally by the Franklin Institute. The Institute for Learning Innovation will conduct the summative evaluation. Research will be conducted by the University of Pennsylvania's Graduate School of Education on the effects of AR and VR technologies on exhibit learning.